What leads to better outcomes in informal STEM-based environmental education programs for youth?

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program funds innovative research, approaches and resources for use in a variety of settings. This project will examine the characteristics and outcomes of a large sample of environmental education field trip programs for youth to elucidate program characteristics that most powerfully influence 21st century learning outcomes. Environmental education programs for youth, particularly day-long school trip programs, are popular and reside at the intersection of formal and informal STEM education. Such field trips provide opportunities for diverse audiences to participate in shared learning experiences, but current understanding of what leads to success in these programs is limited. This large-scale study will address this gap in knowledge by investigating the linkages between program characteristics and participant outcomes for at least 800 single-day environmental education field trip programs for youth in grades 5-8, particularly programs for diverse and underserved audiences. This study will result in the identification of evidence-based practices that will inform future program design for a wide variety of settings, including nature centers, national parks, zoos, museums, aquaria, and other locations providing informal environmental education programs.

This Research in Service to Practice study is guided by two research questions: 1) What program characteristics (context, design, and delivery) most powerfully influence learner self-determination and learner outcomes? And 2) Do the most influential program characteristics differ across diverse and underserved audiences (e.g. African American, Hispanic/Latino, economically disadvantaged) and contexts (e.g. rural versus urban)? This project will examine a wide range of program-related factors, including pedagogical approaches and contextual characteristics. A valid and reliable protocol for observing 78 program characteristics hypothesized to influence learner outcomes developed by a previous project will be used to systematically sample and observe 500 single-day environmental education field trip programs for youth in grades 5-8 distributed across at least 40 U.S. states and territories. Programs for diverse and underserved youth will be emphasized, and a diverse set of programs in terms of program type and context will be sought. Data from this sample will be combined with those of an existing sample of 334 programs provided by over 90 providers. The final combined sample of over 800 programs will provide sufficient statistical power to confidently identify which program components are most consistently linked with learning outcomes. This sample size will also enable stratification of the sample for examination of these relationships within relevant subpopulations. Principal component analyses will be used to reduce data in theoretically meaningful and statistically valid ways, and multilevel structural equation modeling will be employed to examine the influences of both participants' individual characteristics and program and context characteristics on participant outcomes. Since one research question focuses on whether program outcomes are the same across different audiences, the project will include at least 200 programs for each of three specific audiences to ensure sufficient statistical power for confidence in the results: primarily African American, primarily Hispanic/Latino, and primarily White.